Closing the Science and Mathematics Teaching Quality Gap in K12 Schools: Conference on "Induction of Science and Mathematics Teachers into Professional Learning Communities"

This conference proposal follows up on a prior Wingspread meeting conducted by the National Commission on Teaching and America's Future. The earlier meeting focused on the research base around attracting and retaining K-12 STEM teachers. This second conference will build on that prior work and bring together education leaders, STEM researchers and policymakers to explore evidence based approaches to reducing STEM teacher turnover. The outcome of the conference will be a call to action that draws on the best evidence available to identify strategies that increase the retention, quality and diversity of the STEM teacher workforce.